U.S.-Japan Joint Seminar: Finite and Infinite Dimensional Dynamical Systems/July 1989/Kyoto, Japan

This award will support a seminar on "Finite and Infinite Dimensional Dynamical Systems," organized by Prof. Shui-Nee Chow of the Georgia Institute of Technology and Prof. Kyuya Masuda of the University of Tokyo. Participants will meet in Kyoto, Japan, on July 17-21, 1989 to exchange recent research results and promote future joint research projects. The seminar will deal primarily with partial and ordinary differential equations as dynamical systems on finite- and infinite- dimensional spaces. This fairly recent approach has been applied to certain important systems, but the theoretical basis for such application is as yet relatively primitive. This multidisciplinary seminar will bring together researchers in such areas as classical ordinary and partial differential equations, abstract ergodic theory and dynamical systems, and map theory; as well as experimentalists. Discussion will center on general approaches to dynamical systems, treatment of traveling waves, turbulence, chaos, and problems in gas and fluid dynamics. These discussions may have important implications for the development of new and efficient simulation methods for fluidmechanical systems.